9th International Conference on Surface and Colloid Science to be Held on July 6-12, 1997 at Sofia University in Bulgaria

CTS-9708190 Darsh Wasan Illinois Institute of Technology This proposal request a travel grant to cover expenses for ten speakers from the U.S. to participate in the 9th International Conference on Interfacial and Colloid Science (9ICSCS) to be held on July 6-12, 1997 at Sofia University, Bulgaria. This conference is one of a series of important world wide forums for the fundamental and technological applications of colloidal dispersions, capillarity, self-assembled matter, surfactants, and polymers, interfacial dynamics at liquid/gas, liquid/liquid, liquid/solid and liquid/solid/gas interfaces, biocolloid and biointerface, environmental engineering, etc. Previous conferences have been held in Adelaide, Australia (1994), Copmiegne, France (1991), Hakone, Japan (1988), Potsdam, NY, USA (1985), etc.